MRI: Development of a Next-Generation Ultrasound Research Platform

EIA-0079639
Walker, William F.
University of Virginia

MRI: Development of a Next-Generation Ultrasound Research Platform

This application proposes the development of an advanced experimental system to support ultrasonic imaging research. The proposed system will be capable of continuing acquisition over a period of 1.6 seconds, the equivalent of roughly 50 image frames. The system will also incorporate a data interface to allow future connection to custom processing units, ultimately enabling real-time processing of aperture domain data. The system will be constructed around AgilentTechnologies SONOS 5500 ultrasonic imaging system to enable real-time imaging and preserve broad signal bandwitdth, high signal to noise ration, and wide dynamic range.